Synthesis, Structure, and Function of Eukaryotic snRNA U14

Diverse populations of low molecular weight RNAs, found in both prokaryotic and eukaryotic organsims, have been shown to play important roles in a wide variety of cellular processes including DNA replication, RNA transcription and processing, and mRNA translation. This laboratory's research efforts are focused on the structure and function of one such small nuclear RNA designated snRNA U14. This evolutionarily conserved eukaryotic lmwRNA species possesses a conserved ability to intermolecularly base-pair with 18s ribosomal RNA. Molecular and cellular characterization of mouse and Xenopus U14 as well as genetic analysis of yeast U14 strongly indicate a role in eukaryotic rRNA synthesis and/or processing. Recent experiments have quite surprisingly revealed the positioning of the mouse and Xenopus U14 genes within intron 5 of the constitutive-expressed cognate hsc70 heat shock gene, a unique genomic organization for an snRNA. The experiments outlined in this investigation will examine the synthesis, structure, and function of eukaryotic snRNA U14. The biosynthetic pathway responsible for U14 biogenesis defined. The synthesis and cellular distribution of U14 will be studied in both normally and abnormally growing cells. U14's role in rRNA processing as well as possible involvement in the heat shock/stress response will be examined. Finally, structural studies will define an evolutionarily conserved U14 secondary structure, determine those U14/18s rRNA sequences involved in intermolecular hybridization, and characterize the U14-associated proteins of a putative U14 ribonucleoprotein complex. Results from these studies will lead to a better understanding of the structure/function relationships of this unique and evolutionarily important eukaryotic lmwRNA.***//